Interactive Physics CD-ROM

Proposal Number: III-9361792 PI: G. M. Kurtz Institution: XKT Ltd Title: Interactive Physics CD-ROM This project is to develop a multimedia Interactive Physics CD-ROM designed for self-paced, non-evaluative use by high school students. This CDI disk will be designed to be used in conjunction with the videodiscs Physics: Cinema Classics (PCC) which are already developed and which include a barcode directory for all the 2,000 video/images on the discs as well as a teacher's guide for them.